Soil-Pile Foundation-Structure Response Analysis Using Data from the Loma Prieta Earthquake

This project addresses the lessons learned from the 17 October 1989 Northern California (Loma Prieta) Earthquake. The objective is to evaluate the state-of- the-art analytical techniques for analyzing soil-pile foundation-structure interaction during earthquake shaking, in order to improve the understanding of this phenomenon, and to verify and calibrate existing techniques. This is achieved by analyzing the response of a 30 story building in Emeryville, California, using various techniques for analyzing soil-pile-structure interaction under seismic loading. The building is a ductile moment resisting space frame and wall structure supported by a 5 foot thick concrete mat with 900 14 by 14 inch concrete piles. It is instrumented with strong motion recording instruments which successfully recorded the building motions during the Loma Prieta earthquake (USGS Rep.89-568, 1989): the ground motions adjacent to the building were also recorded. This investigation involves a collaboration with the United States Geological Survey (USGS).